Purchase of Instrumentation for Laser Spectroscopy Studies

This award from the Chemistry Research Instrumentation Program will help the Department of Chemistry at Michigan State University purchase laser equipment. This equipment will be used in the following research activities: 1. Light Induced Charge Separation in Model and Biological Systems 2. Charge Separated Electron Transfer in Biomimetic Model Compounds 3. Solvent Dynamics of Non-Adiabatic Charge Separated Electron Transfer 4. Experimental and Theoretical Approaches to Specific Solvation of Charge Separated Electron Transfer Complexes 5. Proton Coupled Charge Separated Electron Transfer Lasers emit a narrow beam of coherent, powerful and nearly monochromatic electromagnetic radiation. This radiation is used in Chemistry to study a broad range of subjects, from the dynamics of proteins and nucleic acids to photoelectron transfer processes, and from interfacial chemistry to picosecond pulse shaping. Lasers are also useful in optics, communications, and engineering.